CISE Research Instrumentation

This award is for the acquisition of a distributed memory MIMD computer to support research across several disciplines. These areas include: load balancing by task partitioning on MIMD computers, development of distributed algorithms for Quantum Monte Carlo algorithms applied to thermodynamic problems, finite element methods for modeling nuclear waste repositories, groundwater quality modeling, and adaptive algorithms for modeling sub-particle interactions. The development of parallel computers is lowering the cost of super computer performance machines. Many universities can now do scientific computing in a number of application areas that required super computers in the past. Western Michigan University has developed expertise in the use of Multiple Instruction Multiple Data computers. The acquisition of this computer will benefit scientific research in computer science, physics, ecology, and numerical analysis.